Modern Foundations of Computer Science

This workshop presents a three-week intensive program to introduce computer science faculty to new approaches for integrating mathematics and problem solving skills into computer science courses. Participants are exposed to new discrete mathematics concepts, modern paradigms for computer science problem solving and programming, and methods of using mathematics as a problem solving tool. Computer laboratory sessions using the latest instructional software and modern programming languages are used to reinforce these concepts. The target audience is faculty actively engaged in teaching undergraduate computer science courses. Women, minorities, other groups significantly underrepresented in the computer science field are actively recruited. Participant travel expenses are cost shared by the participant's home institution.